Development of Hydrogeologic Component of the Geology Curriculum

This project provides funds to install an educational water well field laboratory for the purposes of teaching hydrogeologic principles, groundwater resource evaluation, and contaminant remediation. The field consists of five wells variously spaced and 200 feet deep. The wells are fully instrumented to permit measurement of aquifer hydraulics in a heterogeneous, anisotropic, unconfined aquifer, as well as long-term monitoring of water quality, static water level, and local precipitation. The key instrumentation is an in situ water level transducer/water quality probe/precipitation gauge datalogging system that allows monitoring on a variety of time scales and downloading to a portable computer for further analysis on and off site. This faaility permits the university to expand the hydrogeology component of the geology and environmental science curriculum at introductory and upper course levels at a time when many students are entering the hydrogeology job and graduate school market. Hydrogeologic principles and their application to water resources management and contaminant remediation are being taught through a series of discovery laboratories at the well field site. The emphasis is placed on directed activities that include the collection, analysis, and interpretation of hydrogeologic data commonly preformed by a professional hydrogeologist. The level of sophistication increases at each course level in the curriculum. Introductory students explore the surface and subsurface processes in the hydrologic cycle. Upper-level students perform and evaluate pump/slug tests, water sampling and chemical analysis, contaminant plume simulation, well field siting methods, and geophysical logging techniques. Student independent research projects can take advantage of the unique site location between a perennial groundwater feed stream, impermeable diabase dikes, and high-volume springs.